CAREER: Engineering Research and Education in Analog VLSI Parallel Computational Systems

This award supports an integrated multidisciplinary program of education and research in computer engineering that addresses the real-time computational requirements of multimedia systems. The approach is based on parallel, fine grain hybrid analog-digital computing, using adaptation inspired by neuromorphic engineering to compensate for inaccuracies in the analog implementation. Research in this program is coordinated with classes, projects, and workshops in the curriculum of the university. At the graduate level, projects will include focal-plane arrays, speech classifiers, and A/D converters. At the advanced undergraduate level, classes include experimental projects on a smaller scale.